Networked Workstations for an Undergraduate Meteorology Laboratory

Abstract ATM-9526666 Richard N. Mower Central Michigan University UNIDATA: Networked Workstations for an Undergraduate Meteorology Laboratory. Funds will expand the capabilities of the undergraduate meteorology laboratory through the acquisition of five networked workstations. The proposed expansion will enable the program to make the transition to UNIX from a single OS/2 workstation and will allow access to a wider range of products available through UNIDATA via Internet Data Distribution (IDD).